Institute for Mathematics and its Applications

Abstract

Award: DMS-0439734
Principal Investigator: Douglas N. Arnold, Fadil Santosa, Arnd Scheel

The mission of the Institute for Mathematics and its Applications
(IMA) is to increase the impact of the mathematical sciences by
fostering interdisciplinary research linking mathematics of the
highest caliber to important scientific and technological
problems from other disciplines, technology, industry, and
society. Allied with this mission, the IMA also works to expand
and strengthen the talent base engaged in mathematical research
relevant to such problems. To this end, the Institute serves as
an information hub in the mathematical sciences, hosts
postdoctoral researchers at the start of their careers, conducts
and sponsors graduate student workshops, offers opportunities for
mid-career mathematical scientists to change research directions,
organizes programs aimed at students and researchers from groups
traditionally underrepresented in the mathematical sciences, and
sponsors public outreach activities.

The IMA is a national research institute that hosts scientific
programs on short (one week or less) and long (academic year) time
scales, without permanent faculty or research staff. Most of the
Institute's programs are conducted in its Minneapolis facilities, but
the IMA also sponsors conferences and graduate summer workshops at its
academic participating institutions. Those academic institutions and
IMA's participating corporations contribute to the Institute's
programming and planning through dedicated governance committees. The
IMA web site at http://www.ima.umn.edu/ describes upcoming and past
programs, solicits ideas for future programs, and offers application
forms for Institute activities.